ZEUS: the Starformation History of the Universe

AST-0705256/Stacey/Cornell

This project covers an upgrade of a focal-plane array detector capable of submillimeter-wave spectroscopy of galaxies. The array is called ZEUS, for redshift (Z) and Early Universe Spectrometer. The prototype instrument has demonstrated its ability to make observations of starburst galaxies, which are angularly extended sources that lend themselves to imaging arrays such as ZEUS. The upgrade covers additional pixels (from a 1x32 engineering array to a 5x50 science array).